Operation of the Committee on National Statistics

The Committee on National Statistics of the National Academy of Sciences works to improve the statistical methods used for analysis in many fields of science. Its work is also aimed at upgrading the quality of statistical information on which important basic research and public policy decisions are founded. The committee, composed of distinguished statisticians and other scientists of eminence, identifies problem areas in which statistical questions are pivotal, and carries out studies which evaluate these questions comprehensively and seek to provide feasible solutions. Broad support for the committee's developmental activities and basic operating costs is provided by a consortium of federal agencies led by the National Science Foundation. Each agency contributes an annual sum proportionate to its interest in the committee's yearly agenda and the size of its own research budget. The award recommended at present represents the foundation's financial participation in the consortium for Fiscal Year 1991. The award also carries notification of the foundation's intention to contribute a similar amount to the committee's upkeep in future years, contingent upon satisfactory progress and the availability of funds.